Ground-based Measurement of the Solar Spectrum 360-1100nm

This effort will provide more accurate measurement of our Sun's spectral output in the range 360 to 1100 nm. This will be done by deploying a state-of-the-art CCD-array solar spectrograph to a high altitude favorable site (either Mauna Loa or Mauna Kea), as part of a self-contained autonomous system. Calibration will be carried out using a monochromator and absolute photodiode "trap detectors." Data will be reduced using Langley extrapolation (and in the stronger absorption bands methods similar to Reagan-Brugge fitting), to yield the solar output free of atmospheric absorption.